Mathematical Sciences: On-Site Research to Advance Industrial Quality and Productivity

Continued funding is provided for a fellowship program entitled "On-Site Research to Advance Industrial Quality and Productivity." Jointly sponsored by the National Science Foundation and the National Institute of Standards and Technology (NIST), the program will be administered by the American Statistical Association while NIST acts as the host agency. This program is designed to bridge gaps between quality assurance efforts in industry, academia and government through the formation of research teams of industrial, academic, and NIST statisticians and engineers. Possible areas of research for Fellows ar statistical design of industrial experiments, process control, studies of advanced manufacturing systems, computing for engineering and industrial statistics, and calibration of manufacturing process control. Continued funding is provided for a fellowship program, designed to have academic statisticians and engineers studying industrial problems, especially in the area of quality assurance.